Partial Support for the 22nd Midwestern Mechanics Conference

This award provides partial support for the 22nd Midwestern Mechanics Conference to be held at the University of Missouri- Rolla in October 1991. This series of conferences has a long tradition of participation from all over the world and in a wide range of topics.